Levers of Reform in K-12 School Systems

This exploratory study is designed to determine attributes of large urban school districts which would maximize the probability of success for implementing and sustaining major educational reforms. The study will include personal interviews with key change agents in a number of such school districts where changes have been attempted and will identify attributes which lead to failure as well as those which lead to success. The project will culminate with a draft document of an "Urban School District Systemic Reform Initiative in Science and Mathematics" which incorporates findings, in NSF solicitation format.